Acquistion of a Small Research Telescope for Fountainwood Observatory

AST-0116188
Wilhelm, Ronald

A research grade 16-inch telescope and instrumentation for the Fountainhead Observatory of Southwestern University will be specified, purchased, integrated and verified. Southwestern University is a small non-PhD granting institution that focuses on teaching and undergraduate research in the astronomical sciences. This telescope and instrument system will be used in three instrument areas: 1. Photometry of RR Lyrae stars to yield masses and luminosities of these stars, 2. Photometry of active galactic nuclei, 3. Photometry of Type IIn supernovae.
***